Mathematical Sciences: Inverse Problems for Semiconductor Equations

9300951 Fang This project is concerned with the development of analytical and numerical techniques for the identification of parameters in nonlinear partial differential equations which model semiconductor devices. A particular focus is the quantitative relationship between measurements collected by nondestructive testing techniques and the desired model parameters. This analysis will form the basis for the development of effective numerical algorithms to be used for identification of parameters directly from the measurements. It is anticipated that such algorithms will have an immediate impact on parameter estimation in semiconductor devices. In the semiconductor industry, there are newly developed nondestructive testing techniques for detection of interior properties of semiconductor devices that are not directly measurable. The relation between the measurements collected by such techniques and the desired interior property is not well understood quantitatively. In this project, the quantitative relationship between the quantity that describes the interior property and the measurements obtained will be explored. Such an analysis will allow the semiconductor industry to better understand the practical aspects of nondestructive testing techniques and hence provide information for improved estimation of critical parameters in semiconductor devices. Based on this analysis, computer programs will be developed that can be used to compute the desired quantity directly from measured data. ***